Unveiling True Galaxy Abundance Evolution at z=6-15 with Precision Simulations and Analysis

The aim of the proposal is to conduct cutting-edge computer
simulations to help understand the increasingly rich observations of
the young Universe. The simulations will study the damage wrought by
the brilliant life and explosive death of the first stars. The
material between the stars is cooked by intense, high-energy radiation
and the simulations will study the consequences of that
cooking. Particles of dark, non-radiating matter respond to the force
of gravity, so dark matter could influence the formation of the first
stars and galaxies. The simulations will study how this influence
depends on the mass assumed for these poorly-understood particles.
Comparisons between the simulations and the growing body of ground-
and space-based observations of the young Universe will significantly
strengthen the inferences drawn from those observations. The new
simulations will be suitably visualized and shown to the public in the
IMAX theatre of the Rose-Hayden Planetarium of the American Museum of
Natural History in New York City. Prior videos from this team have
been featured daily in that venue, making it an effective point of
public access especially for young viewers.